Ca2+ and Anoxic Damage in the Hippocampal Slice

The general problem addressed in this research is the irreversible brain damage resulting from short exposures to anoxia/ischemia. The problem will be studied in a model system, the rate hippocampal slice preparation. Irreversible damage in this system is the permanent blockage of synaptic transmission following 10 minutes oxygen deprivation. The research will address two basic questions about the mechanism of this permanent damage: 1) Is increased cytosolic calcium during anoxia, a major initiator of the damage? and 2) How does glutamate or aspartate release during anoxia contribute to causing the damage? With regard to the last question, the work is designed to test the hypothesis that this amino-acid toxicity during anoxia occurs because of binding to NMA receptors and the subsequent release of calcium from intracellular organelles, probably mediated by increased production of inositol-3-phosphate. The studies address the two questions, and the hypothesis, largely by estimation of changes in cytosolic calcium, made by measurements to tissue regions which are damaged and by correlating damage with changes in calcium and with changes in IP3 in different conditions. Significant advances should be made towards dealing with these two very important issues.